Energy and Mass Exchange Induced by the Gulf Stream Ring Over the Continental Margin

A modeling effort using the recently developed semi-spectral primitive equation model by Haidvogel will investigate the energy and mass exchange over the continental margin due to interaction between topographic waves generated by Gulf Stream rings and the sloping topography.